Charged Interfaces and Porous Media

Interdisciplinary research program on the effects of charged ionic interfaces between a solid and an aqueous electrolyte. Specific systems of interest are metal/electrolyte interfaces in electrolytic cells, and brine-saturated porous media with large surface/volume ratio. Electrolytic deposition will be used to study pattern formation and non-linear phenomena at high current density. The ac properties of rough and fractal electrodes due to diffusive relaxation of interfacial charge will be investigated. Thermodynamic and ac impedance experiments will give information on interfacial charge transport in porous media. Coupling between the charged layer and fluid flow in such media will also be studied.